Historical Modules for the Teaching and Learning of Secondary Mathematics

9730329 Katz The Mathematical Association of America is developing twelve instructional modules based on the history of mathematics to be used in high school classrooms. Each module will contain: 1) a teacher's guide to the lesson; 2) the historical and cultural background for and current applications of the topic; 3) biographical information about the mathematicians (where possible) who contributed to the topic; 4) detailed lesson plans; 5) copy masters; 6) exercises for students; 7) suggestions for student projects; 8) a bibliography; and 9) questions to be answered by students as part of a written journal. The modules contain mathematics topics already present in the high school curriculum and are intended to be replacement or supplementary units. Mathematical and historical content enhancement is provided the teacher-writers and field test teachers through a Faculty Enhancement grant, DUE 9752755.